Dynamics and Spectroscopy of Molecular Excited States

Professor Robert B. Weisman is supported by a grant from the Experimental Physical Chemistry Program to study the spectroscopy and dynamics of excited gas phase organic molecules. This research will help to further our understanding of laser induced photochemical reactions. Weisman will employ nanosecond pulsed lasers to perform electronic and vibrational spectroscopy on excited states and photochemical products of organic compunds. In one project, Weissman will continue his study of the light-induced dissociation and isomerization of azoalkanes. This work is to be complemented by quantum chemical calculations in support of the detailed mechanism which Weisman has proposed based on his experimental findings. In another study Weisman will use transient CARS to explore the gas phase photodissociation of 1,3-cyclohexadiene. Additional experiments based on a recently developed method to measure the collisional loss of vibrational energy from organic molecules will be used to identify the factors that cause unexpected variations in vibrational energy transfer as a function of energy in the colliders. Finally, transient infrared absorption will be developed as a tool to probe short-lived excited states of gas phase polyatomics.